Fundamentals of Tribology and Bridging The Gap Between Macro-And Micro/Nanoscale Tribology

0002976
Bhushan
Partial support is provided for US participants in a NATO Advanced Study Institute (ASI) to be held in Hungary during August 13-25 of 2000. The ASI is on "Fundamentals of and Bridging the Gap Between Macro- and Micro/Nanoscale Tribology". It is designed to encourage interactions between researchers from Eastern Europe and the West for the purpose of exploring new frontiers of research, exchange information, and discuss potential collaborative efforts. It will also provide an opportunity for new researchers to become aware of research and educational opportunities in a broad spectrum of specialties within the field.
***